Active Control of Floor Vibration

9503369 Hanagan Excessive floor vibrations are not uncommon in many types of building structures. Previous research conducted at Virginia Polytechnic Institute & State University has utilized active control to improve the dynamic characteristics of an objectional floor system. In this research, control forces were imparted on the structure, by means of an electromagnetic proof-mass actuator. A collocated velocity feedback algorithm with a simple command limiter was implemented digitally. Due to the significant improvements that were observed, continued research is planned for this solution for repairing floor systems will unacceptable levels of occupant induced floor vibrations. Three main objectives: 1. Improved Actuators and Algorithms for Floor Vibration Control. 2. Simulation of Floor Behavior Subject to Occupant Activities. 3. Experimental Implementation of Active Control Using Multiple Actuators.